ABR: Comprehensive Analysis and Summarization of the SUPER Program

The SUPER Program has completed its field work and most of the ensuing laboratory analyses. SUPER stands for SUbarctic Pacific Ecosystem Research, a program studying the pelagic production dynamics of the Gulf of Alaska, sponsored by NSF. Six expeditions into the Gulf of Alaska were mounted for a large variety of observations. The goal was to understand the absence of phytoplankton blooms in this region, together with continuously high concentrations of nutrients like nitrate. This investigator represents an accomplishment-based renewal (ABR) in order to prepare a full summary in book form of the SUPER results. This also would take account of other past and current research on the pelagic ecology of the subarctic Pacific. The SUPER group did arrive at a new, system-level view of production dynamics in the subarctic Pacific. This system level view will be the basis for developing the summary for the SUPER results.